Computer-Aided Instruction Facilities for Science and Technology in Society

9452362 Waechter-Brulla A new interdisciplinary course entitled "Science and Technology in Society" integrates topics from all scientific disciplines. In the lecture, we examine basic science concepts and processes, technological advances and their impact on society. In the discussion, we demonstrate how information is collected, assimilated and understood via direct participation. Students will use computers for data analysis and presentation; additional computer-aided instructional materials will be used in both discussion and lecture. This course will be required of all undergraduate students, and it will enroll 800 to 1000 students per semester beginning in fall 1994. Undergraduate pre-service science teachers will serve as course assistants and be present with the faculty during the discussion sections. These undergraduate assistants will also be available to assist the students with interactive media homework assignments. The course will serve as a model for the UW-Whitewater campus and other comprehensive universities through its unique interdisciplinary nature and its exploitation of certain pedagogical elements: direct student involvement, computer-aided instruction, computer-based data analysis, multimedia enhanced lecture delivery.